Industry Defined Fundamental Research

PROGRAM DIRECTOR'S RECOMMENDATION

0946275 Industrial Research Institute (IRI); Edward Bernstein

The purpose of this proposal is for IRI, leveraging its membership, connections and loyalty within American Industry, help define fundamental research requirements that will have a direct effect on the success of American Industry. The proposed work will help create a new, original, method of developing a scientific agenda that can lead to exciting research in areas such as batteries, low-cost photovoltaics, and others.

The proposed work will promote partnerships between industry and academia and, therefore, will increase learning on both sides by exposure to new science and technology contained in each one’s organizations. IRI is committed to diversity in all its programs and services.